Development of A New Flow Visualization Technique for External Flows

9411980 Hoyt A novel flow visualization technique for large scale flow structures, with particular application to turbulent eddy flows, is proposed. The method consists in generating visualizing fluid filaments, of specific density close to unity, and then using them as tracers. The essential issue is maintaining the filament coherence and diameter. Long-chain polymer solutions and specially prepared surfactant solutions will be used for filaments. Dual exposure photographs, with quantitatively evaluate local flow structures. The method is simple, cost effective and can be easily applied once the best composition of the filament has been established. ***